CAREER: Algebraic Geometry of Moduli Spaces

The investigator and his colleagues
will address a number of
fundamental problems about
the geometry and arithmetic of moduli spaces:
What is the canonical model of the moduli space of curves of genus g?
Can one construct natural spaces that interpolate between the
canonical model and the moduli space of stable curves?
Can these be interpretted as moduli spaces in their own right?
Can one count the number of rational
points of moduli spaces of curves, bounded
with respect to various heights? What are the natural
functions (effective divisors) one might use to specify these
heights?
What are the naturally defined strata
in the deformation space of a plane curve singularity?
How can one interpret blow-ups along such strata?

Algebraic geometry is the study of the solutions
to systems of polynomial equations. Geometric
aspects of the solution sets translate into algebraic
properties of the equations, and vice versa. This
approach has the advantage that computers can
manipulate equations very efficiently. Promising
hypotheses can thus be checked on explicit examples.
Increasingly, computational approaches to geometry
are transforming the education of undergraduate
and graduate students, both in pure mathematics
and in related fields where mathematics is applied.
This emphasis on concrete examples and explicit computation
creates new research opportunities for young people,
especially those who have only just started to learn
the technical intricacies of the subject.